Thematic Program: The Mathematics of Drug Resistance in Infectious Diseases

The Fields Institute in Toronto will host and fund (Canadian $200,000) a Thematic Program on The Mathematics of Drug Resistance in Infectious Diseases", July-August 2010. This application seeks support for junior U.S. researchers (graduate students, postdoctoral fellows, and junior faculty) to participate in the program.

Drug resistance by bacteria and virus has been regarded as one of the biggest threats to public health in the new century. The proposed two-month thematic program at the Fields Institute will focus on the Emergence of Drug Resistance in Infectious Diseases and will bring together leading researchers in mathematical epidemiology/immunology from around the world in order to stimulate major progress in this area. The program will consist of two main sub-themes that are of fundamental importance to understanding and predicting the emergence of drug resistance: (a) Mathematical Immunology: from In-host to Population Modeling; (b) Transmission Heterogeneity in Infectious Diseases. Each of the above sub-themes represents an important area of current research interest and importance to public health, and each also provides ample opportunities for the advancement of mathematical theories and techniques.

This award is being jointly funded by the Division of Mathematical Sciences and by the Office of International Science and Engineering (OISE).